HPNC: Strengthening Research and Teaching through Network Infrastructure Improvements

This proposal will establish an advanced network connection from the University of the South, through Vanderbilt University to the Southern Crossroads Gigapop and on to the Abilene/Internet2 network for research and education. Driving collaborative research applications include
* Landscape analysis
* Appalachian Watershed Research,
* GIS Information for the Cumberland Plateau, and
* Astronomy to share research data.